CAREER: Effects of Electronic Alignment in Laser Induced M-H2 and M-CH4 Reactions

Solomon Bililign of North Carolina A&T University is supported by the Experimental Physical Chemistry Program in his studies on the effects of electronic alignment in laser-induced metal-hydrogen (M-H2) and metal-methane (M-CH4) reactions. Specifically, he will investigate how the electronic structure and electronic orbital alignment of a metal atom affects the structure and chemical reactivity of M-H2 and M-CH4 complexes. Far wing absorption spectroscopy will be extended to study the continuum or scattering state of a transient bimolecular collision complex and investigate depolarization, chemical quenching, and reaction in LiH2, ZnH2 and ZnCH4 complexes. The ultimate goal of these studies is to gain new understanding and detailed knowledge about the physical and chemical binding of some metals with hydrocarbons. The educational activities associated with this CAREER award include outreach programs to schools in the community, links to industry, short term projects for undergraduates and course development related to the research project both at the undergraduate and graduate levels. The interactions of hydrogen or carbon-hydrogen bonds with metal atom sites is of great interest and importance to areas such as homogeneous or heterogeneous catalysis and organometallic chemistry. C-H bond activation by metal atoms is one of the most important and basic reactions in chemistry and may lead to more efficient and less costly catalytic reactions. Despite this importance, we do not yet have a complete understanding of some of the simplest metal-atom-hydrocarbon reactions. These detailed studies will bring new understanding and detailed knowledge about the physical and chemical binding of metals with hydrocarbons. In addition, this research program at a historically black university will provide a very basic research infrastructure for the training and education of underrepresented members of society and should prove to be very effective in attracting African Americans and other underrepresented groups to advanced research in science.